Helium in Diamonds and Associated Mantle Minerals

This project is to distinguish the mantle helium isotopic signature with new measurements of deeply buried diamonds from kimberlites of various ages. The helium isotopic measurements combined with IR spectroscopy and cathodeluminescence microscopy will make it possible to relate the isotopic data to diamond mineralogy. Laser dissection of individual diamonds will eliminate the possible effects of alpha particle implantation, resolve variations within individual diamonds. Studies of several new alluvial localities will allow an assessment of the importance of cosmic-ray-produced 3He to the diamond work.